NSF Young Investigator

The P.I. research pertains to the investigation of the role impurities and inhomogeneities will play in operation of ballistic electron and single-electron devices. This necessitates the development of a technique to enable gates to be scanned over the surface of a semiconductor.